RUI: Cold collisions involving atoms, molecules, and ions

Collision involving atoms, ions and molecules at cold and ultracold temperature will be investigated using quantum mechanical, molecular scattering techniques. In each case, the system to be investigated is of experimental interest and a major goal of the research is provide theoretical guidance for the experiments.